A Computer Modeling Facility

A Computer Modeling Facility The project will purchase computer equipment to develop a facility for molecular modeling. The facility will encompass all levels of the instructional program, and touch all students passing through the chemistry curriculum. This comprehensive use of computational chemistry is a major new level of undergraduate molecular modeling. Students will use the facility in laboratory, lecture and research aspects of their instructional sequence.